Chloroplast Heteroplasmic Suppression

Informational suppression can be central to genetic analysis and gene manipulation. Suppressor-tRNA mutations may be used to define selectable markers for transformation experiments. Suppression of chloroplast gene was first observed in Chlamydamons reinhardtii by this laboratory. The photosynthetic mutants which were suppressed were found to be heteroplastic and it was proposed that a balanced polymorphism of suppressor and wild type alleles of a tRNA gene resulted in the heteroplasmicity. The hypothesized mechanism is unique and this study continues the characterization of the system. The objectives are to determine the nature of the tRNAs involved and determine the frequency and diversity of heteroplastic suppression. %%% Much has been learned of the physical structure of the chloroplast genome but little is know of the basic genetic mechanisms utilized by this organelle. C. reinhardtii is still the only green organisms in which routine genetic analysis of this chloroplast is possible and the information resulting from this study could have important economic ramifications.